Engineering Research Equipment: Speech Processing Workstation

9412011 Rutledge This Equipment Grant funds the purchase of computer equipment, audio interface components and support software which is dedicated to support research in engineering. The equipment will be used for several projects, including speech processing to compensate for sensorineural hearing losses, speech recognition over the telephone, enhancement of alaryngeal speech, and audio processing based on psychoacoustics. Acquisition of this equipment will permit processing of higher quality speech and audio signals, and implementation of algorithms having much greater complexity with more efficiency. ***